Change Impact Analysis of Object-oriented Software

Software systems evolve over time in order to adapt to changes in
environment. Graceful software evolution requires that only expected
changes in functionality occur; while desirable, this is difficult to
achieve. Software tools are needed to automate the evolution of
complex software systems containing heterogeneous components, by
reporting change impact information to programmers, allowing
examination of the effects of code edits. Tool support for change
impact analysis has a clear potential to boost programmer productivity
and enable safe code enhancement.

This research in change impact analysis assumes that an
object-oriented system is developed with a suite of tests, run as the
system is updated to check the safety of changes. Analyses can
determine which tests are affected and which changes affect each of
these tests. Since these tests often exercise independent
functionalities, the tests affected correspond to those
functionalities that may have been altered. This research will develop
an interactive tool for change impact analysis of Java, as part of a
industrial-strength programming environment to ensure practicality.
The tool will allow experimentation with the granularity of changes
and program representations, incrementalization of the analyses,
collection of a Java benchmark suite, and application to collaborative
software development.